Catastrophic Flooding Conference

A symposium on "Catastrophic Flooding" will be held on September 26-28, 1987, at Miami University, Oxford, Ohio. The purpose of this meeting is to present results of ongoing research to discuss the limitations of it, and to determine what future research is needed in this area. The national and international speakers presenting papers represent a diverse perspective on extreme and rare flood events and include engineers, climatologists, geomorphologists and hydrologists. A half- day workshop which will take place during the conference, will provide the attendees with an opportunity to discuss in depth these hydrologic and geomorphic problems, the type of data needed to assess the risks of catastrophic floods, the suitability of current models, and the most promising new areas of research. Proceedings will be published and distributed to the participants and other interested parties. A summary of the proceedings will be submitted to the American Geophysical Union for publication. The P.I. is capable to conduct the symposium and workshop and has submitted a revised budget that is judged suitable. An award is recommended.